Harmonic Maps and Minimal Surfaces into Spaces of Curvature Bounded from Above

DMS-0072483
Chikako Mese

The principal investigator proposes to study geometric
variational problems, with particular emphasis on harmonic maps
in spaces with singularities. Motivated by questions in
geometry and algebra, the study of harmonic maps to singular
targets, particularly metric spaces of curvature bounded
from above, has attracted the attention of many mathematicians.
In particular, many remarkable results have been obtained by Gromov-Schoen, Korevaar-Schoen, and Jost. The PI proposes to
develop the minimal surface theory as a continuation of the
study of the harmonic map theory. The PI has shown that minimal
surfaces in metric spaces of curvature bounded from above
generalize several important properties of the classical minimal surfaces. We are interested in the development of a higher
dimensional analogue of the theory advanced thus far. The PI
will also investigate harmonic maps between surfaces when the
target is given a metric of curvature bounded from above.
We are particularly interested in understanding the behavior of harmonic maps when the target metric has singularities associated
with curvature concentrations. Furthermore, we hope to gain an understanding of the behavior of harmonic maps when we vary the
target metrics in a certain class. This in turn will be used
to study Teichmuller spaces.

The mathematical study of harmonic maps is natural and
physically significant. This is because physics dictates
that most natural actions occur in a way to minimize certain quantities. For instance, it is well known that the path
of light in space is affected by gravity, and this path can
be realized by a curve which minimizes arclength with respect
to a certain metric. A thin film (such as a soap film formed on
a closed wire frame) will come to a configuration which
minimizes the surface area. Both these configurations can also
be represented by energy minimizing maps. As critical points
of the energy functional, harmonic maps are mathematical models
of natural phenomena and provide an interesting mathematical study.